Yeast Chromosome Structure, Replication and Segregation Federation of American Societies of Experimental Biology July 5-10, 1992, Snowmass, CO.

This conference on Yeast Chromosome Structure, Replication and Segregation is being held under the auspices of the Federation of American Societies of Experimental Biology (FASEB) from July 5-10, 1992 at Snowmass Colorado. The meeting will follow the guidelines established by the first FASEB conference held on this subject August 5-10, 1990. Participation will be limited to 155 scientists chosen from applicants on the basis of their expertise and interests as being most likely to create a stimulating and informative meeting. There will be nine major scientific sessions. In addition, an afternoon session will be devoted to discussion of the complete DNA sequence analysis of S. cerevisiae chromosome III. Remaining afternoons will be devoted to poster sessions and informal workshops. %%% This meeting will fill an important niche for scientists interested in yeast chromosome replication and segregation by allowing extensive communication between laboratories at an important time in this rapidly developing field.